ITR: System Support for Energy Management in Mobile and Embedded Workloads

The goal of this project is to develop an integrated
hardware/software infrastructure to support power management for
battery-powered mobile and wireless applications. These future
environments will support applications with demanding requirements
such as disaster recovery. Energy conservation, especially for
mobile and embedded devices, promises to have significant economic,
environmental, and societal impacts.

The activities focus on three key directions: i) the development of
power measurement tools, workloads, and experimental methods to
evaluate energy consumption, ii) the energy-aware APIs to allow
application-directed power management, and iii) the development of
system support for high-level solutions.

These research projects all rely on experimental techniques for
evaluating ideas. Making empirical measurements and observations on
device and workload characteristics pinpoints the problem areas of
greatest potential. Initially formulating simulation models narrows
the solution space and allows consideration of new architectures.
Finally, constructing working prototypes allows observation of all
activity associated with real operating environments and offers
deeper insights into their behavior. The popularity and
accessibility of the palmtop and handheld platforms gives this
research significant potential for immediate technology transfer.